Scientific Database Workshop

The proposed workshop will bring together scientists and database researchers to identify the requirements and design criteria appropriate for scientific database software. In particular, the workshop participants will seek to identify the problems which can be solved by existing database software and, more importantly, determine those problems which are not being addressed by existing database software and for which solutions needs to be developed. The goal will be to produce a planning document to help guide research toward producing viable scientific database management systems.